Models for Wave-Bottom Interaction and the Formation of Sand Bars and Sand Ridges

Bona
9974116
The overall technical objective of the project is to develop
three-dimensional topographical models that describe seabed
dynamics in wave-dominated near-shore zones and shelf regions
where single and multiple sand bars or sand ridges form a central
morphological feature. The investigator models and analyses the
effects of waves and currents on coastal dynamics. This is
challenging because of the presence of two free surfaces, the
water surface and the movable bottom, both of which change over
time, and which interact with each other through complex,
nonlinear processes. The model features nonlinear, dispersive,
dissipative partial differential equations to describe the
evolution of waves coming in to the shore from deep water. These
equations, which are of Boussinesq type, are coupled to a model
for run-up and reflection at the shoreline. Once the evolution of
the water surface is approximately known, the velocity field in
the bulk of the fluid may then be determined via potential
theory. This velocity field is then viewed as driving a viscous,
sediment-laden boundary layer in which the sediment transport is
taking place. The velocity distribution in this layer is
determined using ideas similar to those pioneered by
Longuet-Higgins. By applying conservation of sediment mass in an
infinitesimal form, a differential equation is thereby inferred
that serves to determine the bottom deformation. Thus the entire
model is somewhat complicated, consisting of a nonlinear
initial-boundary-value problem for the wave motion coupled in a
nonlocal way to a conservation law for the bottom movement. This
model is developed in detail, analysed and implemented as a
computer code. Model predictions are compared with field data.
It is also proposed to link the computer code with input from a
Geographical Information System, to allow easier deployment of
the model in real situations.
The underlying motivation for the project is two-fold.
First, there is a desire to understand both qualitatively and
quantitatively some of the fundamental processes that lead to the
formation and maintenance of bottom structure in coastal zones
and on continental shelves. This involves a thorough knowledge
of both the wave environment and the dynamics of the bed as it is
influenced by waves and by currents. Second, and not less
important, the project responds to the need for new and more
sophisticated tools to aid in the development of strategies to
deal with real coastal engineering problems. The project has the
potential to contribute to the study of a number of important
scientific and environmental issues. The ocean margins in North
America are vast and in many places, troubled. Indeed, erosion
of unconsolidated coastlines is a world-wide phenomenon that is
not well understood. Global warming will aggravate these
problems by increasing sea levels, thus causing shore retreat and
providing a better base for the scour and erosion associated with
wave activity. Fragile Arctic coasts and low-altitude regions
are already displaying unmistakable signs of deterioration caused
by these global changes. Severe erosion may well spread to other
coast regions within the next half century, and thus there will
be an increased interest in effective prevention methods. In
addition to "hard" protection schemes such as the construction of
seawalls and the like, there will be an increased demand for
"soft" protection strategies that take advantage of natural
processes.